Boundary Behavior of Analytic Functions

The research will focus on several problems concerning
the boundary behavior of analytic functions and their
applications in functional analysis and mathematical
physics. In analytic function theory the PI plans to
study the interaction between singular and non-singular
components of Cauchy integrals near the boundary of a
complex domain. The results will then be applied to
study the resolvent functions of linear operators in
perturbation problems. This area has connections with
mathematical models of solid state physics, which
provides most of the motivation. Another part of the
project is the study of the connections between the
Beurling-Malliavin theory, inverse spectral problems
for partial differential equations and properties of
kernels of Toepliz operators.

Analytic Function Theory is one of the classical yet
rapidly developing parts of modern mathematics. The
present stage of its development features many
promising new applications in various parts of
mathematics and physics. One of the cornerstones of
Analytic Function Theory is the integral formula
named after the famous French mathematician Cauchy.
The importance of this formula is due to the fact
that most analytic functions in complex domains can
be defined through Cauchy integrals. The PI plans
to study various properties of Cauchy integrals near
the boundaries of their domains. The results will
then be applied in several areas of mathematics as
well as in mathematical physics. The applications
in mathematical physics will concern, among other
things, mathematical models of wave propagation.
The general question that will be considered is how
to recover full information about a disordered
environment from the spectrum of the wave operator and
partial information on the potential field.